U.S.-Argentina Workshop: Chronobiology in Buenos Aires, Argentina; October 2005

0456369
Harrington

Dr. Mary E. Harrington, Smith College, along with her counterparts, Dr. Diego Golombek, Universidad Nacional de Quilmes, and Dr. Mario Guido, University of Cordoba, are organizing a workshop on Chronobiology, to be held in Buenos Aires, Argentina, October 25 - 28. The goals of this activity are to identify common research priorities for collaboration in the field, and to introduce students to current research questions and technologies. Their workshop will precede the 8th Latin American Symposium on Chronobiology and will take advantage of this large gathering of the world experts in the field.

This satellite workshop will lay the groundwork as an introduction to the field, directed primarily at students who are new to the topic. This is an opportunity for students to network among the senior researchers in this exciting new field of science. This is a relatively new field of research (circadian biology) and it impacts a broad range of biological systems.